Development Materials for Using uMPS in the Undergraduate Curriculum

Abstract

Proposal 0341003
Development Materials for Using mMPS in the Undergraduate Curriculum
Xavier University
Michael Goldweber

This project creates a new hardware simulator, mMPS, to support a long-term, multi-assignment, layered system implementation project for courses in operating systems. It also creates both a Student Guide and an Instructor's Guide that together provide a turnkey system for instructors using the simulator. The Student Guide describes the simulated hardware and contains a tutorial for using mMPS's GUI. It also contains detailed descriptions of the overall OS design and of each layer and assignment. The Instructor's Guide describes the purpose of each of the layers or assignments, which OS concepts are needed by the students for each and includes appropriate test files, and contains a detailed solution for each layer/assignment. With this support, students can finish a course with a completely student-written operating system that supports virtual memory and multi-tasking.